Topics in Information Theory and Coding Theory

This project addresses several problems form the area of information theory and coding. In the area of channel coding, the work will address error correction and modulation codes for storage channels, techniques for burst error correction coding, codes which detect unidirectional error patterns and correct random error patterns , and multi-user channel coding from a unified information theory and network theory point of view. In the source coding area, the research will consider the problems of estimation through compressed information, Huffman codes with reservations, and some adaptive lossy data compression algorithms.